MRI: Acquisition of a high resolution in vivo micro-imaging ultrasound system for research at The City College of New York

City College of New York (CCNY) of the City University of New York (CUNY) aims to acquire a state-of-the-art Vevo 2100 high-resolution micro-imaging ultrasound system from Visualsonics. This imaging system will enable both basic science and translational research by providing a novel biomedical research and ultrasound contrast imaging platform for in vivo and ex-vivo studies in several research fields. High resolution ultrasound allows real-time longitudinal studies on many research fields such as cancer, atherosclerosis, tendon, cartilage and ligament damage, tissue repair by stem cells, drug delivery, tissue biomechanics in cardiovascular/soft tissues, the development of novel molecular probes and basic science research on wave propagation on poroelastic media, experimental fluid mechanics by Doppler velocimetry and development of photoacoustic sensors. No such kind of imaging equipment exist in

CCNY, therefore, acquisition of this system will provide the perfect complement to the existing imaging capabilities at CCNY (i.e. microCT, confocal and light microscopes). Several faculty members from different departments of CCNY (BME, ME, EE, Biology) will benefit of such system.